Expanded Capabilities in Molecular Biology

9451974 Redborg Molecular Biology equipment allows addition of PCR and gene sequencing to two recently introduced courses; Techniques in Molecular Biology and Molecular Genetics. In addition the equipment is used to further student's independent research projects.